Workshops for NCSU/China Research and Educational Partnership In Symbolic Computation

0456285
Singer

This is a U.S.- China Conference consisting of two workshops on research and education partnership in symbolic computation proposed by Dr. Michael Singer, North Carolina State University and Professor Ziming Li, Chinese Academy of Sciences, China. One workshop will be at North Carolina State University in Raleigh, NC on October 16-22, 2005, and the other at the Mathematics Mechanization Research Center, Chinese Academy of Sciences, Beijing, China, from July 31-August 6, 2006. The workshops will focus on important issues related to symbolic computation and will include one junior scientist and 7 U.S. graduate students. A long-term research partnership is expected to develop between the U.S. and Chinese researchers and graduate students. This conference will be jointly supported by the NSF and the Chinese Academy of Sciences.